EAGER: Collaborative Research: Toward An Adaptive Programming System for Cloud-Enabled Smartphone Applications

Smartphones are fast becoming a full-fledged computing platform that
our society depends upon. Smartphone applications that access data
and computing resources in the "cloud" are inevitable given the
processing and storage limitations on the phones. Today the burden of
partitioning smartphone applications between the phone and the cloud
lies squarely with the programmer. This manual approach to
partitioning applications is fundamentally limited and will not scale
up to allow smartphones to become a truly rich and robust computing
platform. Manual partitioning is tedious and error prone. Moreover,
manual partitioning requires the programmer to make important
decisions that cannot be properly made until run time.

This project explores the requirements, design, and implementation of
a programming system for cloud-enabled smartphone applications that is
inherently adaptive, partitioning applications transparently in order
to cope with a diverse set of dynamic constraints. The project is
studying cloud-enabled smartphone applications from a variety of
domains in order to understand application requirements, constraints,
and tradeoffs in practice. The project is also pursuing programming
models that allow developers to flexibly and declaratively express an
application's components along with their dependencies and
constraints. Finally, the project is developing a prototype system
architecture that collaboratively executes an application on the phone
and the cloud subject to the application's requirements. Within a
decade, smartphones will transform the way health and lifestyle
choices are delivered to much of the population. This project is
helping to enable this transformation by making a rich class of
smartphone applications much easier to create, adapt, and understand.